NSF/STW Workshop in the Hague, Netherlands

Support is provided for Dr. Dale Olseth, President and CEO, to participate in a joint U.S./Dutch workshop to be hosted by the Government of the Netherlands in The Hague on March 24-27, 1992. The purpose of the workshop is to explore the potential for U.S./ Dutch research collaboration among small high tech firms from the two countries. CEOs from several SBIR-related U.S. and Dutch firms will discuss opportunities and problems and separately advise their governments. **//